Instructional Technology in Two-Year College Science Programs

The National Center for the Development of Education (NCDE) is conducting a regional seminar on science-based computer learning/simulation resources for faculty in two-year colleges, primarily from California. The seminars, based on an alliance between two-year colleges, campus-based software developers, and the NCDE, is utilizing instructional materials developed and evaluated by science faculty. Curriculum tracks within the NCDE program are providing intensive hands-on opportunity in exploring potential classroom applications and instructional impacts of instructional technology developed specifically for the science classroom by science faculty. Participants are working with science faculty who have developed and are using instructional software in their classes. Additionally plenary sessions are addressing the major issues affecting science curriculum in two-year colleges; the dynamics of curriculum development and reform, the process of software development, and key aspects of technology utilization in undergraduate instruction in the biological and physical sciences. The two year colleges are contributing travel funds for the participating faculty.